NSFNET Connectivity for the Northwest

9321035 Hood This award assists the NorthWestNet Regional Network in obtaining connectivity to other regional networks and to the rest of the Internet. The award, made under the guidelines published in NSF Program Solicitation 93-52, partially funds one T-3 (45 million bits per second) connection. Anticipated duration of the award is four years.